Isolation and Characterization of the Small Proteoglycan II Gene.

The small proteglycans are major components of bone, skin, tendon, cartilage and other connective tissues as well as being vital to cell: matrix interactions. It has been demonstrated that the small proteglycan II of bone binds to the "D" bands of the gap region of type I collagen fibrils and controls the rate of formation and the final size of these fibers. It is not known which region of the PGII of bovine bone has been cloned and sequenced. Therefore, the gene encoding PGII will be isolated, the intron/exon structure determined and the regulatory motifs (promoter, enhancers) identified and characterized. The process of isolation will involve "gene walking", or utilizing sequences of one genomic clone to isolate and identify another. These overlapping clones will be mapped in detail using restriction endonucleases and synthetic oligonucleotides. The 5' donor and 3' acceptor splice sites for intron/exon boundaries will be identified, isolated and sequenced. Exon specific nucleotide sequences will be utilized to make synthetic peptides. These peptides will then be utilized to determine the locations of specific activities of the various regions of the protein (i.e. collagen binding sites). The promoter will be utilized in transformation studies of cultured bone (PGII protein producing) and kidney (non-producing) cells in the absence and presence of estrogen, vitamin D and phorbol esters. Results of these studies will identify specific structural and functional domains of the protein, and provide a means by which the regulation of expression of the PGII gene can be studied.***